New Directions in Input-Output Modeling

Since its initial development four decades ago, input-output analysis has been a powerful and adaptive tool for studying the structure and dynamics of economies at a variety of geographic scales. Recent research projects have expanded the ways in which input-output analyses have been conceptualized and used, and new algorithms have been developed. This project will continue the development of new uses for input-output analysis by pursuing four related lines of inquiry. First, alternative techniques for identifying the fundamental economic structure of economies will be developed. These techniques will be empirically tested, and an initial classification of economies based on this concept will be undertaken. Second, the impacts of changes in economic structures will be examined by analyzing and empirically testing "fields of influence" of coefficients within input-output models. Third, alternative forms of decomposing economic structures will be empirically studied in order to more effectively analyze the nature and transmission of change throughout economic systems. Fourth, new understandings of fundamental economic structure, fields of influence of input-output coefficients, and economic decompositions will be synthesized to examine the simulated impacts of technological development and the diffusion of new innovations. These analyses will be undertaken by collaborating investigators from the U.S., Australia, Israel, and Korea. This research will increase both theoretical and empirical knowledge. The related enhancement of techniques to further understandings of fundamental economic structure, fields of influence of coefficients, and economic decompositions will enable input-output analyses to be used to examine a broader range of problems, especially issues related to changes in economic activities and to the functional settings in which economic systems operate. Because these new techniques will be tested with data from the U.S., Canada, Europe, and Australia, new insights on economic structure and relationships in those locales will likely result from this work, but even more important from an empirical standpoint will be refinement of methods that will enable their use with data from other regions.